Integrative Computer Education and Research in the Southwest: Preparing IT Graduates for 2010 and Beyond

The University of North Texas has received a Special Projects award to convene a workshop in the Southwest of the US, on the transforming of undergraduate computing education in response to rapid changes in technology and its applications. The purpose of this workshop is to begin a nationwide discussion to catalyze the transformation of undergraduate computing education. Such a transformation is critical to information technology (IT) workforce preparation and the continued preeminence of the U.S. in technology innovation. The workshop will identify areas of needed change and strategies for effecting that change.